EPSCoR Research Fellows: NSF: Machine Learning for Faster Simulation of Neutrino Detectors

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Assistant Professor and training for a graduate student at the University of South Dakota. The work will be conducted in collaboration with Dr. Seon-Hee Seo at Fermi National Accelerator Laboratory (Fermilab). Through the fellowship, the Principal Investigator (PI) will develop new machine-learning (ML) methods that enable much faster computer simulations of particle detectors used in neutrino physics. These tools will help researchers evaluate detector performance and analyze large experimental datasets more efficiently while maintaining the accuracy needed for scientific studies. The project combines particle physics, computer science, and artificial intelligence (AI) to improve computational research infrastructure for next-generation neutrino experiments. The fellowship will strengthen research collaborations between the University of South Dakota and Fermilab, provide advanced training for the PI and students in AI and scientific computing, and produce broadly reusable software that will benefit the high-energy physics community.

This project will develop a validated, ML-enabled fast simulation framework for liquid-argon time-projection chamber (LArTPC) detectors, using the Deep Underground Neutrino Experiment (DUNE) as the primary benchmark. The project will construct empirical detector-response models that predict efficiencies, particle-identification performance, and reconstructed energy, angle, timing, and position directly from truth-level particle information. These response models will be incorporated into a standalone, fast-simulation package capable of producing analysis-level observables without executing computationally expensive full-detector simulations. The project will establish validation benchmarks, software testing procedures, and documentation to facilitate adoption by the broader research community. The fellowship will strengthen computational particle physics research at the University of South Dakota through national laboratory collaboration, graduate student training, and sustainable software infrastructure that can be extended to future liquid-argon detector experiments. This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows (ERF), which supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government, or academic research institutions.